Conference on ``Banach Spaces and their Applications in Analysis''

This is a proposal to support a very large conference on Banach Spaces and Their Applications. The topic is current and the proposed conference is well thought out with prominent speakers who are active contributors in this area.